The Impact of Subsurface Fluid Advection on Coastal Ocean Chemistry

Moore (OCE-9712298) ABSTRACT Moore, Shaw- OCE 9711298 The impact of submarine groundwater discharges (SGWD) on the coastal ocean has been suggested to be quite significant for a variety of chemical cycles and biogeochemical processes in the near shore region. Data however to quantify and chemically characterize these groundwater fluxes are difficult to obtain and are lacking in ocean and hydrological sciences. The lead PI Moore has already shown that the key to determining the scale of SGWD are measurements of short-lived radium isotopes, 223Ra and 224Ra, and the longer lived 226Ra. The association with the second PI Shaw, adds the important expertise to measure Ba and stable trace elements, so that the PI's can better evaluate the influence of these groundwater fluxes on a broad range of trace elements and nutrients that are of wider interest to the marine sciences, hyrological sciences and coastal management communities. The PI's propose to place bounds on the fluxes and inputs of groundwaters using a regional sampling approach. During the project, field sampling will be conducted on three major cruises in the South Atlantic Bight between North Carolina and Florida. Shorter cruises are proposed to respond to specific drought, storm or rainfall events. Groundwater investigations utilizing existing wells near these study sites are also proposed. Overall, the combination of their unique tracer measurements and ancillary data will allow the PI's to evaluate the impact of goundwater fluxes on the coastal oceans, and the important controls on the strengths and composition of these fluxes.